Growing Science Inquiry

The National Gardening Association will be offering a four-year program of professional development for elementary teachers interested in inquiry-centered teaching using plants in the classroom. This program will provide three-week summer workshops and follow-up support to leadership teams of teachers, school administrators, and community partners from 16 urban sites. These teams will become experts in the use of GrowLab, an instructional program developed with NSF support by the National Gardening Association, and Fast Plants, another NSF-supported instructional program, developed at the University of Wisconsin. Private businesses and informal learning centers such as botanical gardens and horticultural clubs will provide content support to teachers. The teams of participating teachers will offer professional development opportunities to other teachers in their region, and act as advocates for inquiry-centered teaching in elementary classrooms. More than 360 teachers, administrators, and community partners will be reached directly or indirectly by this program of leadership development. A national network and newsletter will also disseminate news of this project. Cost sharing represents 50% of the NSF contribution.